Graduate Student Support for Meet'N'93

MEETN93, the first joint meeting of the Society of Engineering Science, the Applied Mechanics Division of the American Society of Mechanical Engineers and the Engineering Mechanics Division of the American Society of Civil Engineers, will be held at University of Virginia, on June 6-9, 1993. The objective of the NSF support is to partially subsadize travel and meeting expenses for 75 graduate students enrolled in Ph.D. programs- the next generation of scholars asnd researchers.